ET^2: Engineering and Technology Transfer Scholars' Program

This project focuses on academically talented and financially needy students who transfer from 2-year schools to Rochester Institute of Technology (RIT). Through this scholarship effort, the program recruits, retains and graduates 25 additional transfer scholars per year in engineering and engineering technology BS degree programs. In support of this project, RIT contributes $50,000 to ensure that scholars have continuing financial support after the grant expires. This contribution indicates the university's enthusiasm, a firm commitment of service to engineering and technology students, and an endorsement of the goals and objectives of the scholars program. This scholars program targets women and minority students, identifies scholars in academic trouble and provides help to them through proactive intervention, prepares students with skills, education and work experience needed to enter the high technology workforce, and performs regular and thorough assessment of program level strategies.